Workshop: Biodiversity Monitoring Workshop at UVA's Blandy Experimental Farm

9818647

Bowers

A workshop will be convened to investigate the feasibility of designing and establishing a network of Biological Observatories for long-term monitoring and research on biological diversity. Participants in the workshop will address the following questions: (1) What sort of sites might be included in a network of Biological Observatories? (2) What are the best mechanisms to measure biodiversity at different spatial scales? (3) What is the appropriate frequency of sampling for different taxa at these observatories? (4) How can we integrate these efforts with existing programs, such as PEET or the National Environmental Monitoring and Research Network? (5) What is the most appropriate information management system for biological observatories? These questions will be addressed at a small workshop to be held from 9-11 September at the University of Virginia's Blandy Experimental Farm. It is anticipated that this workshop will lead to a larger more comprehensive meeting within a year following this meeting. This workshop will provide an important forum for input on the design and conceptual development of a network of biological observatories.